An Integrated Internet-Accessible Embedded Systems Laboratory

Computer Science (31) This project develops, evaluates, and disseminates an integrated Internet-accessible embedded systems laboratory and associated instructional materials. Development of this laboratory involves the adaptation and implementation of four key ideas from several prestigious institutions (Arizona State, Kansas State, GA Tech, CMU, and Princeton). The laboratory relies on new educational pedagogies to enhance the learning experience of our students in three degree programs Computer Engineering, Electrical Engineering, and Computer Science. The project develops and disseminates a substantial amount of instructional material on embedded systems an important, emerging educational area. It also provides complete documentation on the design and use of an Internet accessible laboratory model. This model, applicable to other disciplines, provides students access to expensive, sophisticated equipment either remotely or in a hands-on mode, as appropriate to the educational goals.